Multi-User Microscope for Analysis of Double-Label Epifluorescence

Proposal Number: IBN-9418641 Principal Investigator: Cheryl Sisk This award is to provide a high-resolution epifluorescence microscope for research neuroendocrinologists at Michigan State University. High-resultion fluorescence microscopy will be used to localize biological molecules to specific subcompartments of individual cells within particular areas of the nervous system. These molecules are tagged with fluorescent markers that show particular colors under ultraviolet light. That way different molecules can be tagged with different colors to determine, for example, if a particular pair of molecules occur together or separately inside specific cells. These scientists will use the microscope for concurrent detection of activity-dependent markers and steroid receptor proteins, for comparisons of enzyme expression patterns in mast cells and glia, and for colocalization of neuropeptides and neurotransmitters in different regions of the brain. Furthermore, this technique can be used to determine how the distribution of these molecules changes when the animal is involved in different behaviors or, for example, is subjected to different photoperiods such as those that occur with the seasons. This microscope will also be equipped with a teaching head so that the scientists can use the microscope for teaching undergraduates these state-of-the-art histological and immunocytochemical techniques.